Teacher Professional Development in Facilitated Online Learning Communities: What Do We Know and Need to Know

This planning proposal is for the development of a full proposal to develop a new outline learning community, Scienceline II, for middle school teachers of science and for conducting studies based on data collected in Scienceline II field trials.